Development of Complex Stochastic Models of Carcinogenesis

The investigators propose to develop new innovative approaches for
modeling and analyzing carcinogenesis models involving multiple
pathways with each pathway being a stochastic multi-stage model and
with intermediate initiated cells subjecting to stochastic
proliferation and differentiation and genetic and epigenetic
changes. The investigators also propose to apply these new
innovative approaches to develop carcinogenesis models for some
human cancers for assessing risk factors and to develop predictive
procedures for these cancers. Specifically, the investigators will
apply the methods to develop new stochastic models for human liver
cancer because of the importance of this cancer and because of the
availability of some precious data for this type of cancer. The
investigators note that the similar methododology can be applied to
other human cancers as well, which will be investigators' future
research.

The investigators study some cancer models for human liver cancer
based on the existing data already collected. Such models are
considered to follow EPA proposed cancer guidelines (Federal
Register 51(85), 33992-34003, 1996). The use of such model is
possible because sufficient biological information on the human
liver cancer is available. The end result of this research should be
useful for cancer prevention and cancer control. The investigators
believe that this along with other advances will render many current
practices in experimental biology, including many steps of drug
development, unnecessary. This will in turn make the drug
development process become more productive and efficient.